Effects of Dissolved Organic Carbon Source and Concentration on Proportions of Active Bacteria in a Wetland Ecosystem

Abstract

99-04136
Ward

Effects of dissolved organic carbon source and concentration on proportions of active bacteria in a wetland ecosystem

Exciting new advances in the field of microbial ecology have occurred in recent years. We now know that microbes are the "unseen majority" among living organisms and play pivotal roles in biogeochemistry and health issues in ecosystems across the globe. Molecular microbial ecology is enabling much of the new knowledge and understanding. In this project the investigators will apply a never-before-used combination of traditional microbial tools and molecular techniques to understand environmental cues that increase the proportion of active-as opposed to dormant-bacteria in wetland environments. The roles of native plant-derived organic carbon and microbial grazers will be examined as controlling agents that influence the abundance of active bacteria. Since most bacteria that occur in aquatic environments are dead or inactive, this research is especially important for providing a method for identification and a new understanding of those active bacteria that perform important ecosystem services.